Interregional Connectivity for SESQUINET

9321023 Gerbode This award assists the SESQUINET Regional Network in obtaining connectivity to other regional networks and to the rest of the Internet. The award, made under the guidelines published in NSF Program Solicitation 93-52, partially funds one 10 million bits per second connection. Anticipated duration of the award is four years.